SGER: Foundations of Three-Dimensional Micro-Optical Systems

0074578
Descour

The main objective of this project is a quantitative investigation of a
versatile methodology for zero-alignment integration of micro-optical and
micro-electronic components. This methodology is based on the concept of a
bulk-micromachined substrate that plays the role of an optical table. The PI's
propose a micro-optical table (MOT) on which a variety of optical elements,
light sources, e.g., surface-emitting lasers, and photo-detectors can be
accurately positioned without the need for extensive alignment. In the
course of this project we will: (1) design and fabricate prototype MOT
mounting slots for optical elements, (2) perform MOT micro-assembly
experiments, and (3) develop and apply metrology techniques to characterize
the assembled micro-optical systems. The research proposed here will permit
a quantitative judgment regarding the suitability of the MOT concept for
applications in biomedical sensing, biomedical imaging, optical data
storage, and chemical sensing."
***